Mixing in the Eastern North Atlantic

Mixing experiments at short vertical scales will be done in the Eastern North Atlantic using both the High Resolution Profiler (HRP) and Shadowgraph Television (STV). This cruise will be closely related to and coordinated with the North Atlantic Tracer Release Experiment (NATRE), a WOCE Core Three contribution.